Japan STA Program: Numerical Simulations of a DC Offset FreeMagnetic Field Detector

Japan STA Program: Numerical Simulations of a DC Offset Free Magnetic Field Detector This award will provide supplementary support to enable Dr. Mark Jeffery of Drexel University to conduct collaborative research with Dr. Eiichi Goto for 24 months at the Institute of Physical and Chemical Research in Japan. They will utilize Dr. Jeffery's numerical simulation of a new type of magnetic field measurement device in order to demonstrate any flaws in the detector's design. Present Superconducting Quantum Interference Device (SQUID) technology can accurately measure changes in magnetic fields, however, in many applications the absolute magnitude of the magnetic field must also be measured. Dr. Goto has patented a prototype magnetometer (IKA) which could measure the absolute magnitude of magnetic fields. Before the IKA can be constructed, a detailed numerical simulation of the device is needed to illustrate any problems associated with parameters such as the nonlinear properties of the Josephson junctions, temperature dependent quantum fluctuations, and noise due to inductive coupling between components. Dr. Jeffery's experience in superconducting network theory and numerical modeling will complement Dr. Goto's expertise in superconducting device technology and will facilitate the design and effective construction of the IKA magnetic field detection device.